Mathematical Sciences: Representations of Semisimple Groups over Finite Fields and Quantum Groups

This research is concerned with the representations of semisimple groups over finite fields and quantum groups. The principal investigator will study characters of finite dimensional irreducible representations of quantum groups at roots of 1. He will also study character sheaves and their relation with the irreducible characters of finite groups of Lie type. Finally, he will study canonical bases of enveloping algebras. One of the postdoctoral associates will work on Lang's conjecture in positive characteristic and Chow groups of some moduli spaces of curves. Another postdoctoral associate will work on a proof of the Lefschetz Trace Formula for algebraic stacks and the conjecture of Weil on Tamagawa Numbers over function fields. Another postdoctoral associate will study both the applications of analytic tools to the understanding of quantum groups and the use of quantum groups to approach questions of analytic interest. Quantum groups are a new area of research for both mathematicians and physicists. On the mathematical side, it combines three of the oldest areas of "pure" mathematics, algebra, analysis and geometry, yet it is of great interest to physicists working on conformal quantum field theory.